Student Travel Support for IEEE Symposium on Security and Privacy 2012

Since 1980, the IEEE Symposium on Security and Privacy has been the premier forum for the presentation of developments in computer security and electronic privacy, and for bringing together researchers and practitioners in the field. The students, supported by this travel award, are provided a unique opportunity to participate in this symposium and a forum in which to meet and interact with the leading international researchers in cyber security. This research experience will encourage these promising graduate students to pursue careers in cyber security.